Science in Action

Thirty sophomore and junior high school students will participate in a two-week residential program designed to accomplish four objectives: (1) teach fundamental principles involved in biology, chemistry, physics, mathematics, and psychology, (2) explore research in one discipline in depth, (3) achieve understanding of ethical considerations scientists face, and (4) explore career options in the sciences. Activities will include lectures, laboratory exercises and involvement in on-going faculty research. Follow-up activities will include student presentations based on their Young Scholars workshop experience to students and teachers in their home schools.